Tenure, Mobility and Incumbency: Testing and Elaborated Theory of Occupational and Firm Labor Markets

This is a study of the ways in which careers and wages are affected by the mobility of workers within labor markets. Most jobs are located within an occupation and within an organization or firm. The wages paid in a job may depend both on characteristics of the occupation and the firm, depending on the resources characteristic for the occupation and firm. This study will examine how such labor market resources affect wages independently of individual characteristics of the individual holding the job (education, age, effort, for example). The study will be based on data from the Current Population Surveys and the National Longitudinal Survey of Youth. This research will contribute to our understanding of how labor market structures (occupations and firms) may influence the wages paid to workers and in particular how the effects of an individual's skill, education, and effort may be modified by the occupational labor market or firm labor market he or she is working in.